U.S.-Czech Research on Fracture-Toughening of Polypropylene with Liquid Crystalline Polymers

INT 9908858
Weiss

This U.S.-Czech research project between Robert A. Weiss of the University of Connecticut and J. Jancar of the Technical University of Brno features efforts to improve low-temperature fracture toughness of the material isotactic polypropylene (PP). The researchers will use a dispersed thermotropic liquid crystalline polymer (TLCP) phase to delocalize plastic deformation at the crack tip. They expect that TLCP may enhance fracture resistance of PP by inducing cold-drawing near crack planes. If successful, their research should reveal a new approach for obtaining a better interaction between the PP matrix and the TLCP inclusion. Results would be useful in the self-reinforced composites in various industries.

The materials research project fulfills the program objective of advancing scientific knowledge by enabling experts in the Unites States and Central Europe to combine complementary talents and share research resources in areas of strong mutual interest and competence.